Trace Elemental Analyses in Chemistry and Geology

Atomic absorption spectroscopy and its uses for trace elemental analyses are being integrated into introductory and advanced courses offered by the Departments of Chemistry and Geology. Introduction to this fundamental analytical capability, whose applications extend into virtually every field of inquiry where accurate measurements of specific metals are required, is occurring in the first course in chemistry, with advanced courses in instrumental analyses and geochemistry expanding upon the initial experience. New instructional materials and laboratory experiments are being developed to facilitate student understanding of this technology and its broad applications in all fields of materials science. Application of atomic absorption spectroscopy suitable to nonscience majors and preservice teachers is being implemented, and access and instruction is being provided to area high school classes for their ongoing environmental research. Development of this program is being achieved through the purchase of an atomic absorption spectrometer equipped with a sample changer and accessories needed to obtain quantitative analyses at the part-per- billion range. The grantee is matching the award from non-federal sources.